Exploring Dynamic Droplet Gratings as an Enabling Microscale Chemical Measurement Modality

Professor Ryan C. Bailey at the University of Michigan is supported by this award to explore a new label-free chemical analysis technology based upon dynamic microdroplet diffraction gratings. Microscale analytical methods play key roles in enabling advanced manufacturing at both levels of molecular analysis and continuous process monitoring. However, microscale analytical challenges are underserved by traditional bulk characterization methods that struggle to be applied to short pathlengths and rapidly flowing solutions. Dr. Bailey and his group will develop this new measurement platform based upon the simple, yet previously unexploited fact that periodically spaced microdroplets diffract optical light in a way that informs on inherent chemical properties of the droplet contents and spacing fluid. Properties of molecules that will be interrogated include refractive index and viscosity, and by extension, molecular chirality and ligand binding. Dr. Bailey and his group will host undergraduate and high school researchers in the laboratory and also engage with teachers, community groups, and after school programs to develop and deliver active learning curriculum programming that cultivates curiosity and scientific inquiry in the local K-12 student population.

Diffraction is a fundamental property of light that occurs when a coherent source transmits through a periodic structure of varying refractive index. This project is based on a unique observation that periodic trains of flowing microfluidic oil-water droplets, which are an emerging technology for high-throughput analysis applications, can act as dynamic gratings that generate far-field diffraction patterns. Importantly, the spatial pattern and intensity of diffracted orders is sensitive to changes in the refractive index of the two immiscible phases and as such represents a label-free chemical analysis approach. In this way, Dr. Bailey and his group will develop this new technology to determine fundamental chemical properties from segmented microscale flows. Moreover, refractive index has both a real and imaginary component that will both be rationally tuned to convey increased measurement sensitivity and specificity. Beyond developing and refining the overall technological approach Dr. Bailey and his group will investigate important applications of this measurement platform in support of chemical and polymer separations, chemical synthesis, chiroptic analysis, and as a method to study biomolecular interactions all on the microscale and in a format that is amenable to high-throughput analysis and screening applications. These measurement science innovations will provide a fertile multidisciplinary training environment for graduate, undergraduate, and high school students, and results will be integrated within demonstrations in undergraduate courses and also support scientific outreach activities in collaboration with local schools and community groups.